Topology, Geometry and Physics

Abstract for DMS - 0104196

The three principle investigators on this proposal will be
involved in research in the following areas: Barry Mazur will be involved
in at least four major projects. The first concerns Euler systems and
their applications in algebraic geometry, arithmetic and analytic number
theory. The second project will study interpolations of modular
eigenforms via special curves. The third concerns the ABC conjecture in
number theory and the fourth concerns rational points on rationally
connected varieties. Raoul Bott will conduct research at the interface
between mathematics and physics including research topics that relate to
computational complexity, equivariant cohomology, diffeomorphism groups
and toric varieties. The major project of Clifford Taubes concerns the
coding of smooth 4-manifold structures by the pseudo-holomorphic curves
defined by their self-dual 2-forms. The first long range goal is to read
off invariants of smooth 4-manifolds from these curves. The second goal
is to use them to simplify a presentation of the manifold.

Here are some comments of a less technical nature about this
research: Barry Mazurs work concerns properties of the integers and
relations between them. A typical question asks for integers, say a, b
and c, that satisfy some given equation. An example is the equation of
Pythagoreas, which asks that the sum of the squares of a and b equal that
of c. There are very general and natural classes of such relations (such
as those involved in the now proved Fermat conjecture) that probe to the
heart of the theory of numbers; and the study of such equations forms the
core of Mazurs research. Raoul Botts work probes the manner in which
families of symmetries can be used to simplify computations in mathematics
and theoretical physics. These symmetries relate different structures and
often this relation equates a simple to understand property of one system
to a mysterious and not understood property of another. Clifford Taubes
major project probes the possibilities for the large scale structure of
four dimensional universes. Our universe has four dimensions, these the
usual three dimensions of space plus time as the fourth. This said, the
research seeks to provide a complete list of the possible large scale
structures for a universe such as ours. To put this in perspective, there
is a conjectured list for all possible three dimensional spaces, but there
is as yet no credible conjecture for a similar list for four dimensions.